CAREER: Architectures and Compilers for Tiger Machines

CCR-9876248
CAREER: Architectures and Compilers for Tiger Machines
Seth Copen Goldstein

This proposal investigates a new class of processors and their
associated compilers, Tiger processors, which TIghtly couple a
GEneral-purpose processor with a Reconfigurable function unit (RFU).
The RFU can be configured, at run-time, to implement a function as a
hardware circuit. Tiger processors offer the flexibility of a
general-purpose microprocessor with the performance of a custom
circuit.

Tiger processors offer high performance and efficiency because they
contain an RFU, which, when needed, can be configured to implement
hardware matched to any individual application. Tiger processors can
realize an application's parallelism on all levels: MIMD, SIMD,
instruction-level, pipeline, and bit-level.

The two requirements to realizing the potential of these processors,
investigated in this proposal, are (1) developing robust compilers
which quickly produce efficient executables from any high-level
programming language, and (2) investigating the proper interface
between the RFU and the general-purpose processor.

The objective of this research is to allow programs to obtain
performance approaching that of custom hardware from a general-purpose
device. Tiger processors will both increase performance and reduce
the cost of systems because there will be no need to augment systems
with custom hardware and its associated design overhead.